New Composite Material Structures for the Speed/Power Enhancement of Nonlinear Optical Devices

The objective of this proposal is to experimentally demonstrate and verify the hundredfold speed/power ratio enhancements of optical phase conjugate devices predicted by our calculations on structures composite model materials. Specifically the investigators propose to formulate composites of coated metallic nanospheres suspended in a nonlinear optical polymer matrix. The speed/power ratio, spatial esolution, non-linearity characteristics and wavelength response of OPC test devices constructed with three composites will be studied in the degenerate four wave mixing apparatus.